An Advanced Biotechnology Education Partnership Program

The goal of the proposed project is to provide skilled employees for the biotechnology industry. To achieve this goal, a collaboration will be established between the Biotechnology Laboratory Technician Program at Madison Area Technical College, the University of Wisconsin Teacher Enhancement Program, and the industry-based BioPharmaceutical Technology Center Institute. This proposal, An Advanced Biotechnology Education Partnership Program, is a well-coordinated, highly integrated effort to: (1) develop and disseminate curriculum materials specifically designed for technician training at the two-year associate degree level; (2) provide teacher enhancement activities in biotechnology including summer institutes, mentoring and curriculum development partnerships for associate degree and secondary level school teachers; and, (3) support the development and coordination of industry-led, statewide programs to offer work-based experiences for high school students. The proposed program will thus link together the development of instructional materials with faculty enhancement, student laboratory experiences and school-to-work initiatives.